Physics of Exotic Atoms

Two theoretical investigations are planned. Both are concerned with experimental findings on exotic atoms. One is an attempt to account for regularities in exotic atom formation believed to be related to shell structure. This investigation, which should be relevant not only to existing experimental results but also to results coming from LEAR, will employ, at least initially, a simplified adaptation of a procedure due to Born and Flock for dealing with nearly adiabatic processes. The negative meson will be treated as a classical particle moving in a realistic potential due to the capturing atom, while the electrons will be described by wave functions that take into account shell structure. The other investigation is concerned with three body association reactions, especially the one believed to complicate attempts to measure the Lamb shift in muonic helium. Although the immediate goal is to achieve a thorough understanding of an especially simple reaction--the one that occurs when a positive helium ion forms a diatomic molecule in helium gas and which has been studied for decades-- it is intended ultimately to compute the rate coefficient for a similar reaction involving a muonic helium ion that has recently been investigated experimentally at SIN.